Collaborative Research: CT- ISG Key Generation from Physical Layer Characteristics in Wireless Networks

Proposal Title: CT-ISG: Collaborative Research: Key Generation from Physical
Layer Characteristics in Wireless Networks
Institution: University of Connecticut
Abstract Date: 08/05/08
This project focuses on the development of a new class of secret key generation and
renewal algorithms for securing wireless networks by taking advantage of physical
layer characteristics. The basis of the approach is the identification of measurable
quantities of the wireless channel between a pair of nodes that are highly correlated
exclusively between them (albeit not identical). Capitalizing on this correlation, the
project develops algorithms for obtaining a shared key under various adversarial
models.
This addresses a critical problem area as the broadcast nature of a wireless link
provides a natural eavesdropping and intervention capability to an adversary and thus it
follows that securing a wireless link is essential to the security of any wireless network.
This project undertakes the design, implementation, analysis and testing of several
protocols and clarifies the relationship between the channel characteristics and the
cryptographic protocols that use them. It also investigates the trade-offs between
computational and communication costs, and quantifies the level of security achieved
by the key generation and renewal protocols assuming various adversarial models.
The broader impact of the project is in the potential of making wireless communications
more secure while avoiding costs (both computational and organizational) of
cryptography. Given the increased wireless internetworking and the multitude of
wireless enabled devices presently carried by an average user, the security of the
wireless link becomes one of the most critical aspects of securing computer systems.
The reduction in the computation also will translate to a reduction in energy use,
important to battery or alternative powered systems. Educationally, the project will
present an attractive combination of aspects of signal processing, computer security,
algorithms and cryptography and will offer a wealth of problems for student engagement